Seasonal Heat Budget and Thermal Structure of the Tropical Oceans

The maps and studies Hastenrath has produced on the heat storage and transport in the upper layers of the ocean have been one of most useful contributions to tropical climatology. With this grant he will focus his attention on the Indian Ocean. From this work monthly maps of the thermal structure of the upper ocean at 2 degree resolution will be produced. The original datasets, after editing, will be made available to the community through NODC. These products will be very useful to TOGA projects. The direct application of this analysis will be a study on the influence of oceani heat storage on the monsoon regime in the Indian Ocean." will also be investigated.